Calculus Reform at a Comprehensive State University with Project CALC

The materials and approach to teaching calculus being developed at Duke University are being adapted and implemented. The revised course emphasizes greater conceptual understanding through extensive writing, collaborative learning in a discovery-based microcomputer laboratory, and using mathematics for modeling real world phenomena.